Collaborative Research: Ice and Rock Processes in Cirques

Cirque glaciers are sensitive to climate change and offer unique opportunities
for studying fundamental aspects of glacial mechanics. Erosion by these glaciers
and the coupled response of adjacent hillslopes govern the long-term evolution of
bedrock topography in the divide regions of alpine orogens and contribute
sediment into major drainage networks. This project will acquire new
measurements of ice flow, microclimate, rock topography, and sediment flux at
two cirques in the western North American Cordillera. Data will be interpreted
with numerical and conceptual models to constrain the force balance partitioning
and basal motion distribution of the glaciers, to identify the primary controls
on rock flux, and to establish a baseline of topographic measurement on cirque
headwalls for longer-term investigations. The project is a step toward achieving
a general understanding of flow and stress regimes of glaciers in cirques, and
toward building process-based transport relationships between rock mass flux from
cirques and topographic, lithologic, and climatic variables.